Mathematical Sciences: Some Problems in Geometric Analysis

9404097 Bao The project involves further work on differential-geometric problems on Finsler spaces using a certain torsion-free connection. It is proposed to establish a Gauss-Bonnet-Chern type of theorem for a large class of such spaces. This research may have potential applications to topics in relativity theory where such structures arise. ***